Surface Waviness and Wrinkling in Sheet Metal Forming

This project deals with a scientifically and technically important problem in sheet metal forming, namely the study of wrinkling in large panel forming. The scientific content of the project is comprised of two parts: (1) understanding the mechanical behavior of anistropic materials used in sheet metal forming and the development of constitutive relationship for such materials, and (2) the study of instabilities in sheet forming due to wrinkling.